Investigation of Nonpremixed, Reacting Turbulent Flows

ABSTRACT KOSALY CTS-9415280 The proposed program is a continuation of the PI's current investigations of chemically reacting turbulent flows using direct numerical simulation (DNS). The PIs propose to extend their present effort in order to investigate the effects of differential diffusion and heat release on the small scale structure of turbulent mixing and chemical reactions in turbulence. Specifically the investigation will include the application of DNS to the following turbulent, non-premixed reacting flows: (1) DNS of homogeneous, decaying turbulence with chemical reaction and differential diffusion. No heat release effects considered. (2) DNS of spatially evolving, approximately homogeneous turbulence with chemical reaction. Heat release effects will be included. The applicability of the conditional closure model (CMC) near extinction will be examined as will the radical prediction capability of the CMC model. (3) DNS of a spatially-evolving, turbulent jet with chemical reaction. Heat release and a one step chemical reaction will be considered as will the important assumption of the independence of the conditional moments on the transverse coordinate in the CMC model.